Collaborative Research: Unraveling connectivity constraints and pathways of Sargassum and the nature of their variability by building on a Maxey-Riley framework for drift modeling

Satellite imagery has revealed abundant pelagic Sargassum seaweed in the Sargasso Sea, the northwestern Gulf of Mexico and, in the last decade, a new recurrent zonal band, referred to as the Great Atlantic Sargassum Belt (GASB), often extending from the west coast of Africa to the Caribbean Sea. The magnitude of pelagic Sargassum in the tropical and subtropical Atlantic represents a new form of coastal hazard with direct impact on the water quality and living marine resources of the nearshore ecosystem. This project seeks to develop and implement a physical-biological transport model of Sargassum responding in a novel manner to the ocean and atmospheric circulations and changing environmental conditions. The model will account for the combined effects of ocean currents and wind drag mediated by Sargassum raft inertia, which will be a function of growth and mortality in response to ambient temperature and nutrient availability.

This project would use first-principle-based Maxey–Riley framework of fluid mechanics for the study of inertial particle motion to develop a framework for modeling Sargassum drift. The investigators have extended and tested this application to investigating the drift of isolated objects floating at the ocean surface. This foundation, and further recent theoretical developments, will contribute to building a mechanistic physical–physiological model formulation for the movement of Sargassum rafts represented as networks of elastically interacting floating inertial particles whose configurations change according to a growth model. In the model, these changes in Sargassum raft size and shape will correspondingly affect their transport. The required carrying flow to conduct the proposed Sargassum connectivity investigation will be obtained from reanalysis systems and a multidata synthesis. The Sargassum transport model will be tested in the field by satellite tracking Sargassum rafts deployed in the Florida Current. Laboratory experiments in an air-water flume facility will be carried out to quantify buoyancy dependent leeway and constrain wave-induced drift effects. Tools for connectivity analysis and uncertainty quantification will be brought from ergodic nonlinear dynamics theory including set-oriented methods for framing asymptotically almost-invariant sets and the transition path theory for discrete Markov chains.